Colorado Science Teacher Enhancement Program (CO-STEP)

The Biological Sciences Curriculum Study (BSCS) plans to establish a Trainer-of-Trainers Center and a state-wide network of six Teacher Development Centers (TDC) in Colorado. Each center will be a collaborative partnership involving a university, Cooperative Educational Services, a regional branch of the Colorado Alliance for Science, and several school districts. The project design, which is consistent with the Colorado plan for the State Systemic Initiative, has four major components: 1) the teacher development network, 2) the trainer-of-trainers program, 3) the master-teacher program, and 4) the school-based teacher development program. During the 60-month period for which NSF funding is sought, project staff will build a network to provide teacher development and follow-up implementation support for 540 master teachers and at least 1,080 additional classroom teachers of grades 4-6 (48,600 students). Four staff members from each of the six regional Teacher Development Centers (the Center director, the project evaluator, a master teacher, and an administrator) will be trained at the Trainer-of-Trainers Center. Each of these six teams will then develop and implement plans for the improvement of science education via the regional Teacher Development Center (TDC) in their respective regions. Each TDC will offer a series of courses on science and science teaching for the master teachers from their region. The master teachers will be involved in an intensive, long-term program to improve their science teaching and that of their colleagues. Teacher development networks will provide follow- up support to the master teachers as they implement improvements in their science curriculum and instruction. This project is appropriate for the Teacher Enhancement Program because of its systemic plan to enhance in a substantive way the science teaching of a large number of elementary school teachers throughout the state of Colorado. Non-NSF cost-sharing is approximately 163% of the amount requested from NSF.